Workshop on Mathematical and Statistical Research Opportunities from Computer Science

The National Research Council's Board on Mathematical Sciences (BMS) and
Computer Science and Telecommunications Board (CSTB) are planning a 1.5-day
workshop to explore the actual and potential breadth and depth of their
fields' mutual interface. The goals of the planned workshop are to demonstrate
the potential for additional cooperation between the mathematical sciences and
computer science and to begin building some new research collaborations.

The workshop is planned for April 28 (afternoon) and all day on April 29, 2000.
It will be held at an NRC facility in Washington, D.C. At least 25-30 researchers
will be invited to (1) share research interests that are of interest to both
fields, and (2) discuss whether further steps by the NRC are necessary to encourage
collaborations between the fields.

This activity will be funded jointly by the Division of Mathematical Sciences of
the Mathematical and Physical Sciences Directorate, and the Division of Computer
and Computation Research of the Computer, Information Sciences and Engineering
Directorate.